Workshop on the Relationship between Computation and Linguistics

Linguistic theory and computation have both made substantial progress over the past decade. However, the connections between the two have not been as carefully elucidated, so that the synergy between linguistic science, which in effect describes data structures, and computer science, which describes the algorithms engaging those data structures, has not been fully realized. Partly for this reason, current application systems by some estimates lag behind linguistic theory by 5-10 years. This 2-day workshop aims to bring together researchers in both linguistic science and computation to address this gap, with the aim of producing a book of collected consensus and divergent views on this important topic.//